Modeling, Simulation and Optimization of Quality Changes in Processed Foods

Research is conducted on the prediction, simulation, and optimization of nutrient content of processed foods. The estimation of nutritional value and other quality attributes of foods is difficult because the conditions of processing and storage are subject to a great deal of variation. This project will develop methods of quantitative analysis, prediction, computer simulation, and ultimately optimization of specific quality factors of processed and/or stored foods. This research is helping to develop the kinetic approach to analysis of quality changes in food processing and storage into a branch of food engineering.